High-Performance Synchronization for User-Level Applications

Multiprocessor systems use synchronization primitives to coordinate the
activities of multiple threads of control. Spin locks in particular are
widely used in multiprocessor operating systems and in scientific
appliactions. With the proliferation of multiprocessor servers, these
locks have come to be widely used in commercial applications as well.
The multiprogrammed nature of server workloads, however, requires that
threads be able to "time out" and abandon an attempt to acquire a lock.
Timeout is easy on small machines, which can use traditional
"test-and-set" spin locks, but these locks do not scale to large
machines. The principal alternative--scheduler-based locks such as
those provided by Java--has also proven to be prohibitively expensive.

The proposed research aims to address the cost of user-level
synchronization in multiprocessor servers by means of two principal
techniques: (1) the incorporation of timeout in scalable queue-based
locks, and (2) the development of practical mechanisms for the
construction of lock-free data structures. These techniques will be
evaluated with respect to each other and to existing techniques, and
will be incorporated into threaded run-time systems such as the Java
Virtual Machine.